Collaborative Research: Researching The Efficacy Of The Science And Literacy Academy Model

This award is doing a research study of three models of professional development (PD) to test the efficacy of a practicum for grade 3-5 in-service teachers organized in three cohorts of 25. Model 1 is a one-week institute based on classroom discourse practices and a 2-week practicum (cohort 1). Model 2 is the one-week institute (cohort 2). Model 3 is a "business as usual" model (cohort 3) based on normal professional development provided by the school district. Cohorts 1 and 2 experience the interventions in year 1 with four follow-up sessions in each of years 2 and 3. In year 4 they receive no PD, but are being observed to see if they sustain the practices learned. Cohort 3 receives no treatment in years 1 and 2, but participates in a revised version of the institute plus practicum in year 3 with four follow up sessions in year 4. The Lawrence Hall of Science provides the professional development, and Stanford University personnel are conducting the research. The teachers come from the Oakland Unified School District. Science content is the GEMS Ocean Sciences Sequence.

There are 3 research questions;

1. In what ways do practicum-based professional development models influence science instructional practice?
2. What differences in student outcomes are associated with teachers' participation in the different PD programs?
3. Is the impact of the revised PD model different from the impact of the original model?

This is a designed-based research model. Teacher data is based on interviews on beliefs about teaching and the analysis of video tapes of their practicum and classroom performance using the Discourse in Inquiry Science Classrooms instrument. Student data is based on the GEMS unit pre- and post-tests and the California Science Test for 5th graders. Multiple analyses are being conducted using different combinations of the data from 8 scales across 4 years.

There will be 75 teachers and their students directly impacted by the project. Additional impacts of the project are research results and professional development materials, including a PD implementation guide and instructional videos. These will be presented in publications and conference presentations and be posted on linked websites at the Lawrence Hall of Science and the Center to Support Excellence in Teaching at Stanford University.